NSF Travel Grant Support for IEEE ICCCN 2008; St. Thomas, U.S. Virgin Islands; August 3 - 7, 2008

The 17th IEEE International Conference on Computer Communications and Networks
(ICCCN’08) will be held in St. Thomas, U.S. Virgin Islands, USA from August 3 to
August 7, 2008. This preeminent technical conference is the primary venue for presenting
new research results in the area of computer communications and is widely attended by
researchers and practitioners in the field. Attending conferences such as ICCCN is highly
valuable for graduate students’ research and career development. Participants have the
opportunity to present their work, attend panel and keynote speech sessions, and interact
with many others performing state-of-the-art research in the field.

This proposal requests funding to support approximately eight graduate students in the
United States to attend ICCCN’08. The travel awards will target graduate students, in
particular female and under-represented minority students, since they often have limited
travel funds to attend conferences, which is an important part of their educational
experience.